NSF Young Investigator Award

The research to be undertaken includes: ultrastructural studies of solid polymers and polymer composites including dislocations, disclinations, and grain boundaries; thermodynamics and kinetics of phase transitions; the organization of macromolecules near surfaces and interfaces; molecular mechanisms of plastic deformation; and morphology of synthetic poly(peptides).